Polymer-Based Nanocomposites: An Educational Opportunity for Deaf and Hard of Hearing Students

Intellectual Merit
This renewal project provides an opportunity for deaf and hard of hearing students
to participate in classroom and laboratory research work in the field of polymers. A
small group of college-age students will perform an internship at Tufts University for six
weeks during the summer. The classroom and laboratory components address the
materials chemistry and physics of polymers and polymer-based nanocomposites,
crystallization and melting of polymers, the interaction of X-rays and light with
polymers, mechanical properties of polymers, and the connection between thermal
processing, structure, and ultimate properties of polymers. To prepare the students for
participation in the scientific community, a strong component of pre-professional training
is incorporated, including discussion of ethical issues in the performance of research and
in scholarship. The goals of the laboratory research component are to: expose the
students to the laboratory environment; introduce them to the concepts of formulating and
testing hypotheses; assist students to conduct systematic studies while controlling
variables; illustrate the use of modern analytical equipment; and demonstrate the
connection between processing variables, structure, and properties.
The students will make and characterize polymer-based nanocomposite films
comprising a semicrystalline polymer matrix and an additive, which will be either
organically modified silicates (clay) or glass nanospheres. This research will contribute
to a fundamental understanding of the effects of nanoparticles on the structure and
properties of semicrystalline polymers. In this renewal, we will emphasize mechanical
property measurements, using newly available instrumentation.
Broader Impact
The program is aimed at a disadvantaged minority population, of deaf and hard of
hearing college age students. The unique attributes of this program are its emphasis on:
1. Teamwork; 2. Performance of a start-to-finish research project; 3. Materials sciencebased
approach; and 4. Diversity. Students of all disability levels are candidates for this
program, including those students who neither hear nor voice. The broader impact will
be to bring deaf and hard of hearing students into the larger scientific community as
professionals, by providing positive scientific experiences at a formative time in their
educational lives. The long-range goal of the proposed program is to increase
participation of deaf and hard of hearing students in science and engineering, and provide
enrichment and mentoring for these students.